Sixth IMACS International Symposium on Iterative Methods in Scientific Computing; March 27-30, 2003, Denver, CO

Knyazev
0209311

The investigator and his colleagues organize a conference on
iterative methods in scientific computing. Iterative methods for the
solution of linear and nonlinear systems of equations play an
increasingly important role in the numerical simulation of physical
phenomena. Preconditioning is the key for significant improvement of the
performance as it allows one to find a path between Scylla of expensive
factorizations of direct methods and Charybdis of slow convergence. The
recent surge of activity in computational biology creates new
opportunities for iterative methods. As an example, the protein folding
problem involves predicting the native state of a protein. This is
accomplished by minimizing a complex energy function. Global
optimization methods for solving this problem employ iterative methods,
but computational limitations have restricted the application of such
methods to small proteins (fewer than 100 amino acid residues). High
performance computing is one avenue researchers are taking. The
protein folding problem is only one of a great many applications that
can use iterative methods to solve them. Some of the specific topics
targeted at this meeting are: applications (with new emphasis on
computational biology), domain decomposition, preconditioning, parallel
methods, nonsymmetric solvers, nonlinear systems and eigenvalue solvers,
multilevel methods, Krylov methods, interdisciplinary research, student
papers, and open problems.

The International Association for Mathematics and Computers in
simulations (IMACS) International Symposiums on Iterative Methods in
Scientific Computing are meetings that have been held regularly since
1988. The investigator and colleagues organize the sixth such meeting.
The conference is dedicated to providing an overview of the state of the
art in the use of iterative methods with an eye to contributions of the
past, present and future. The emphasis is placed upon identifying future
research directions in the mainstream of modern scientific computing. Of
particular interest are talks on interdisciplinary research, open
problems, and applications, particularly in computational biology. A
special issue of the IMACS Journal Applied Numerical Mathematics is
devoted to the meeting.